Elements: FastTract: Web-Based Exploratory Visualization of Gigapixel Astronomical Images

Like scientists in virtually every field, astronomers are struggling under a
"data deluge". While the ever-larger images obtained by the newest
observatories lead to cutting-edge science, they also overwhelm traditional
tools designed to work with files hundreds or thousands of times smaller
than the state-of-the-art. In particular, astronomers are rapidly losing the
ability to simply look at the images of the sky that are coming out of their
telescopes. The FastTract Project will solve this problem by marrying existing
Web-based visualization technologies in the AAS WorldWide Telescope software
system with new features and tools needed to efficiently work with the large
astronomical images of the 2020's, enabling US astronomers to fully exploit
their world-class facilities, in particular the ones that open new Windows on
the Universe. The project team will synthesize the insight gained in this
undertaking to establish the Little Big Data University (LBDU), a learning
resource for scientists across disciplines who are struggling to stay afloat
in the "data deluge". LBDU will follow the Khan Academy model and extensively
use interactive environments to help researchers and others learn strategies
for Harnessing the Data Revolution. These efforts will especially benefit
people who do not have access to top-tier computational resources, such as
those at small institutions and interested non-specialists.

The FastTract Project will create a sustainable cyberinfrastructure (CI)
system and associated community of practice that enable exploratory scientific
visualization of large (gigapixel+) astronomical images over the Web. The CI
will build on the NSF-funded AAS WorldWide Telescope (WWT) software system.
The research team will extend WWT's image tiling architecture to work with
FITS data files, develop the tooling needed for easy creation of such tiles,
and produce workflows and tutorials allowing the broad astronomical community
to take ownership of the infrastructure. The team will work with three
NSF-funded partners on specific science applications. Annual workshops will
nucleate a core group of project user-contributors and ensure that development
effort meets the needs of the broader community. The project will adopt best
practices in the open-source, open-development paradigm, laying the groundwork
for FastTract infrastructure to be leveraged by non-astronomical communities
facing similar data challenges. In parallel, the team will distill its
expertise to create the Little Big Data University (LBDU), an online
professional development resource aimed at domain scientists who do not intend
to become CI specialists. These scientists will learn core strategies for
coping with ever-larger data sets through the empirically successful Khan
Academy model. Telemetry analysis and focus groups will guide curriculum
design and assess efficacy.